Search Strategies for Locating Underwater Odor Sources: Robots and Lobsters

9315791 Atema Neurobiological and behavioral studies on lobsters have taught us that turbulent (underwater) odor plumes contain directional information based on its patchy fine structure. To measure biologically relevant signals, sensor technology capable of high- resolution (30m, 5ms) chemical signal analysis has been developed. Lobsters locate odor sources efficiently based on bilateral sampling with antennules. Chemoreceptor cells in the antennules are capable of frequency analysis similar to (but slower than) acoustic signal processing. This research tests the hypothesis that bilateral analysis of pulse features is the basis for turbulent chemotaxis. Lobsters, computational models and physical models, i.e., untethered robots, will be employed for this task. Lobster-generated hypotheses will be tested in robots equipped with search paradigms that are pre-tested with computational models. Robot failures to locate efficiently will lead to re-examination and testing of lobsters. Further advances in our knowledge of signal processing in lobsters will be used to update computational models and robot search algorithms. 1. Two small underwater robots will be designed and tested to have the size, mobility and chemical sensing capabilities of a lobster (the benefit vehicle) and a fish (the free swimming vehicle). 2. The vehicles will be used to characterize the spatial and temporal dynamics of underwater chemical plumes in two and three dimensions. 3. The vehicles will be used to test chemo-sensing algorithms proposed for lobsters and fish concentrating on algorithms involved with chemical source localization which is the basic behavior underlying the finding of food and mates. Significant advances in underwater robotics design and in understanding chemosensory signal processing is expected. ***